Grant for Exploratory Research: Specifically Functionalized Fulleroids: Synthesis of Interesting Spheroidal Molecules

The focus of this research is the synthesis and characterization of functionalized fulleroids that have the potential to bind to the active site of retroviral reverse transcriptases (RT) as well as the HIV protease (HIVP). %%% With this Small Grant for Exploratory Research (SGER), the Synthetic Organic Program is supporting the research of Dr. Fred Wudl of the Institute for Polymers and Organic Solids at the University of California, Santa Barbara. The focus of the research is the synthesis of novel functionalized hollow spheroidal molecules, fulleroids, that have the potential to be retrovirus-specific, biologically active molecules.